A Laboratory for Experimental Modeling and Non-linear Control of Brushless Motors

This is a Research Grant for a laboratory to do experimental modeling and nonlinear control of brushless. The funds will be used to purchase the motors, drivers, power supply, transformer, signal processor, transducers, and other equipment necessary to carry out the research projects described in the proposal.